U.S.-France Cooperative Research: Structural and Mechanistic Studies of beta-Lactamases

This three-year award for U.S.-France cooperative research involves the research group of Shahriar Mobashery of Wayne State University and the crystallography group of Jean- Pierre Samama at the Institut de Pharmacologie et de Biologie Structurale, French National Center for Scientific Research, Toulouse, France. The objective of the research is to investigate the function and mechanism of the bacterial enzyme TEM-1 Beta- lactamase. The U.S. investigators bring to this collaboration expertise in protein chemistry, kinetics and enzymology. This is complemented by French expertise in crystal structures of biomolecules. The project will advance understanding of the mechanisms of these bacterial enzymes and their vulnerability to certain bacteria.